Proteins of the Photosynthetic Apparatus

This project investigates the interaction of plastocyanin with cytochrome f and the interaction of cytochrome f with the Rieske iron sulfur protein to learn the interacting domains and the path of electrons through these proteins. The function of cytochrome c550 in cyanobacteria and algae will be studied to learn the catalytic role of this protein. The synthesis and structure of a special class of carotenoid proteins in cyanobacteria will be examined. The structures of proteins in a halophytic cyanobacterium will be investigated to understand the adaptation of protein and membrane structures to extremely high salt concentrations.%%% This project supports a study of the structure of proteins which participate in photosynthetic energy conversion. The objective is to better define the structures of and the interactions between these proteins. Cyanobacteria will be the main objects of study since they afford unique experimental advantages. Cyanobacteria are, in most respects, very similar to other O2 evolving algae and higher plants. They are easily grown and are especially well suited for recombinant DNA experiments. Their simplicity provides advantages to the understanding of photosynthetic processes in all plants. Their long history and special adaptations to harsh environments provide advantages for understanding the evolution of the photosynthetic apparatus.***//